Core Mathematics

Mathematical Sciences (21) The Core Mathematics project focuses on improving the 4-semester core mathematics program at the U.S. Military Academy by adapting and implementing the program embodied in the text "Principles and Practice of Mathematics" by the Consortium for Mathematics and its Applications (COMAP). The core program focuses on problem-solving through modeling and inquiry, supported by mathematical concepts and techniques. This real-world, problem-based mathematics program emphasizes the breadth and variety of mathematics to develop students into competent, confident problem solvers in the social and decision sciences as well as in the science, technology, engineering, and mathematics (STEM) areas; and to promote the process of life-long learning. The concepts and techniques of calculus, algebra, trigonometry, geometry, discrete mathematics, probability, statistical reasoning are supporting tools for problem-solving in the core mathematics program.

This program involves 2000 students and 50 faculty members each semester. The courseware developed under this program includes modeling scenarios, assessment procedures for measuring problem-solving growth, and an annotated syllabus of a four-semester core mathematics curriculum.